REU SITE: Human-Computer Interaction

The project is to address the area of human-computer interaction. The program will involve bringing ten students (five men and five women) to the university for a ten week period, with follow up in the academic year. The students will be from Nebraska and immediately surrounding areas, with the majority from institutions other than the host. Included in the program will be a seminar, the actual research project, and discussion of opportunities for graduate study.